Spatial and temporal dynamics of matter in intense laser fields

This project aims at providing a better understanding of the non-perturbative interaction
of matter with laser pulses or external fields. In each of the three project groups, the
understanding of the nonlinear quantum dynamics will be advanced primarily with the
aid of computer simulations to allow for spatial and temporal resolution. It is also an aim
of the research to explore new concepts and tools that could stimulate further
theoretical and experimental interest.
The first sequence of projects focuses on new phenomena that occur if laser fields are
sufficiently intense either to trigger or affect the creation of electron-positron pairs from
vacuum. The studies will build on a computational technique that has been developed
by the PIs to solve the quantum field theoretical equations in space-time. The second
sequence of projects examines the spatially resolved electron-photon-electron
interaction and searches for the origin of the Coulomb force. It is based on a non-unitary
quantum mechanical formalism that allows the computation to be carried out. The third
sequence of projects explores theoretically as well as experimentally the propagation of
laser fields through heterogeneous dielectric random media.